North American Meeting of New Researchers in Statistics and Probability

An abstract:

The investigator and his colleagues will organize the New Researchers
Conference, a scientific conference for roughly ninety new researchers
in statistics and probability. This consists of organizing an application
process, selecting participants from a pool of applicants, coordinating
talks and poster sessions, arranging for senior speakers, and a variety of
other administrative tasks (arranging for travel, housing, food, etc.).

The New Researchers Conference (NRC) is a conference for recent
recipients of doctoral degrees in Statistics and Probability. The primary
purpose of this conference is to provide a much needed venue
for interaction among new researchers. At present, researchers develop
contacts with others in their field either through their own
institutions or at meetings of professional societies. It is often the
case that junior researchers have limited
contact with senior colleagues, even at their own institutions.
Meetings of professional societies are rather large and junior
researchers often find them overwhelming. The proposed meeting of new
researchers will provide a unique opportunity for these junior
researchers to exchange ideas and initiate contacts among themselves
as well as provide them an opportunity to interact with the invited senior
participants.